Asesssing and Improving Theoretical Predictions of the Strength of Economic Forces

9320695 Levine At times powerful governments seem to be seized by economic forces beyond their ability to control: during a twenty-four hour period, for example, the British government raised interest rates to astronomical levels, swearing under no circumstances to devalue the pound, only to do exactly that. At other times, seemingly minor tinkering with policy can unleash profound and unplanned change: the enormous changes in the former Soviet Union, for example, seem to have been triggered by relatively mild political reforms introduced by Gorbachev in the mid- eighties. This project develops and experimentally tests a rigorous theory that makes quantitative predictions about the strength of economic forces. To the extent that such predictions are correct, they are of great value, directing attention to those types of problems and situations where policy can make a real difference. This project uses data from experimental economics to validate the theory and improves the predictive power of the theory in assessing situations where economic forces are extremely weak, such as the case with the changes unfolding in the former Soviet Union.